Spectroscopy and Relaxation in Liquids and Glasses

James Skinner is supported by a grant from the Theoretical and Computational Chemistry Program to continue his theoretical work on spectroscopy and relaxation in liquids and glasses. Studies are proposed in three major areas: 1) spectral diffusion of individual molecules in glasses; 2) ultrafast solvation dynamics in liquids; and 3) vibrational relaxation in liquids. A combination of formal theory and simulations is used to interpret dynamical information obtained from various spectral measurements obtained from fluorescence probes in glasses and in solution. Amorphous solids or glasses have many important technological applications. Optical spectroscopy of dilute flourescent compounds has been used to probe the dynamics of glasses, and to obtain a better understanding of the thermal properties for such systems. The dynamics of liquid solvents plays an important role in many chemical and biological rate processes. Solvent dynamics can also be probed spectroscopically using dilute solutions of fluorescent compounds. Finally vibrational relaxation is intimately involved in liquid-state chemical reaction dynamics. In order to predict reaction rates, one therefore has to understand vibrational relaxation rates. Skinner will also be studying vibrational relaxation processes in dilute solutions.